Post Critical Heat Flux Heat Transfer

Analysis of heat transfer data in the post critical heat flux region reveals that wall temperature predictions can be improved when the wall-vapor heat transfer coefficient is multiplied by a correction factor which correlates with the quality and the bulk-wall viscosity ratio. In an existing vertical tube apparatus, this process is being studied by simulating the vapor-liquid system with a gas-solid mixture with the objective of isolating the effects of discrete particles on the flow. Experiments will be performed to determine the Nusselt number and friction factor dependence on the quality, solids volumetric concentration, Reynolds number, particle diameter, and bulk-wall viscosity ratio. The experimental data generated in the two-phase flow vertical tube facility will allow comparison of the momentum and energy transport mechanism. This information can be used to create global models of heat transfer and pressure drop of dispersed flows suitable for engineering design predictions.